Mathematical Sciences: Topology, Geometry, and Physics

The three principal investigators, together with junior faculty, postdocs, and graduate students, do research on a wide variety of problems in geometry, topology, and analysis. Some of the topics currently under investigation include symbolic dynamics, gauge theory, wave equations, topological quantum field theory, and index theory. Much of the work has direct ties to ideas in theoretical physics, specifically to dynamical systems and quantum field theory.